Fluid Architecture

This project explores the design of systematic techniques to adapt the internal interface and component structure of programs of moderate size or larger. Programming tools based on these techniques could have the effect of increasing the extent to which the internal interface structure of systems can be made more fluid, that is, evolvable and adaptable. One potential application is to reorganizing abstraction boundaries in programs: It is clear in practice that software structural architectures are rarely optimal, but the costs and risks of adapting them are high. Another potential application is to the tailoring of general purpose frameworks and components to specific constrained uses, improving performance. Four questions are addressed: (1) What semantics-based program manipulation techniques are needed to support manipulation of internal software interfaces represented, for example, as encapsulation boundaries in programs? (2) How can soundness and other properties of the program manipulation techniques be established? (3) What are the design considerations for the development of tools that can operate on programs of increasing complexity and size? (4) How can the utility of the techniques be assessed for development and re-engineering of internal software interfaces and associated components?